Collaborative Research: Understanding Whole-genome Evolution through Petascale Simulation

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This research will address critical issues through a collective research effort to develop new algorithms and high-performance software development for data analysis. With the deployment of petascale computing systems, these problems can for the first time be addressed at scale. Nuclear genomes such as Drosophila will serve as the primary source of data to assess models and methods developed and this research leverages past work on the Genome Rearrangement Analysis through Parsimony and other Phylogenetic Algorithms software suite.